Group Travel for US Participants in XXII Interamerican Congress of Psychology-- Buenos Aires, Argentina, June 25-301989

The XXII Interamerican Congress of Psychology to be held in Buenos Aires, Argentina, June 25-30, 1989 will provide an opportunity for US and Latin American psychologists to discuss research ongoing in all areas of psychology. Partial travel support will be provided for a small number of American participants. Encompassing all aspects of the discipline of psychology, The Interamerican Congresses of Psychology, sponsored every two years by the Interamerican Society of Psychology (SIP), have since 1953 been the single most important forum for exchange among psychologists and other behavioral scientists in the western hemisphere concerned with the comparative and cross-cultural aspects of human behavior. The program will feature 52 invited speakers, including many eminent US scientists, along with over 1800 other scientific presentations in symposia, literature reviews, poster sessions, and roundtables. The outcome of this meeting, as with previous Congresses, will be increased collaboration between US and Latin American scientists, particularly on cross-cultural issues, and a positive influence on experimental behavioral research in Latin America.